Enumerative and Topological Properties of Matroids

The PI plans to continue his research into the
enumerative and topological properties of matroids.
Introduced in 1935 by Whitney, matroids are a
combinatorial abstraction of one of the fundamental
structures of mathematics, linear independence. The
enumerative aspect of the work involves combining
techniques from commutative algebra, topology and
combinatorics in order to study h-vectors of broken
circuit and independence complexes. These
combinatorial invariants appear in applications to
hyperplane arrangements, linear coding theory, network
reliability and quotients of spheres. Topological
properties of matroids will be explored using the
investigator's recent discovery that matroids can be
represented as arrangements of homotopy spheres. This
point of view indicates possible applications to
combinatorial projective planes, oriented matroids and
classical bundle theories.

This research is in the general area of combinatorics.
One of the central themes in combinatorics is the
enumeration of discrete objects with complicated
structure. For instance, this proposal includes
methods for estimating the reliability of large
networks of the type that might be found in the design
of telephone or other similar communication systems.